The Novel Iron-Sulfur Clusters of Hydrogenase

The objectives of this proposal are to expand our knowledge of the structure, function and chemical reactivity of biological iron-sulfur clusters, the most ubiquitous electron carriers in nature. It has been shown that two hydrogenases from the anaerobic bacterium, Clostridium pasteurianum, contain a new type of iron-sulfur center, a 6Fe cluster, which is unprecedented in biological systems. Moreover, it is intimately involved in catalyzing a chemical reaction, the activation of the simplest molecule, H2, and it covalently binds CO, a potent inhibitor. One of the hydrogenases catalyzes a reversible reaction while the other preferentially catalyzes H2 oxidation and mechanisms have been proposed to account for these differences. In the period of this research the reactive 6Fe clusters will be modified with site-directed chemical probes, i.e. NO, N2O, PH3, CH3NC and O2, and modify the hydrogenase proteins using amino-acid specific reagents. The modified enzymes will be characterized by changes in the catalytic activities and by electron paramagnetic resonance spectroscopy (using isotopically-enriched enzymes and chemical probes), redox potentionmetry and peptide mapping. This study will provide information on the structure of their novel 6Fe-clusters and the synergistic role of the cluster and the hydrogenase protein in H2 catalysis. Proteins containing clusters of non-heme iron and inorganic sulfur are the most ubiquitous electron carriers in nature. The provide the cornerstone for such biological processes as respiration, photosynthesis and nitrogen fix ation and participate in innumerable metabolic processes. A very recent development is the realization that iron-sulfur clusters fulfill functions other than or in addition to electron transfer. This study focuses on an example of this. The two hydrogenases of Clostridium pasteurianum contain a novel iron-sulfur cluster that is involved in both electron transfer and catalysis and it covalently binds the inhibitor. An elucidation of their catalytic mechanism is therefore of fundamental importance. Dr. Adams has the expertise needed to pursue this project.